Birational Geometry and Hodge Theory

This project, which is divided into several parts,
is concerned with several interrelated areas of
algebraic geometry centered around the birational geometry
and the Hodge theory of algebraic varieties. In the first part,
the investigators intend to construct differentials on certain
universal spaces arising in algebraic geometry, and apply these to
the study of algebraic cycles. In the second part
the investigators, in collaboration with D. Abramovich
and K. Karu, intend to extend their previous work to the
prove the strong factorization conjecture for birational maps.
This conjecture says that any birational map between smooth
complete varieties has a particularly simple structure: it
is a sequence blow ups followed by a sequence of blow downs
with smooth centers. In the third part, the investigators
will apply the previously established weak factorization
conjecture to compare the Hodge structure of two birationally
equivalent minimal models. In the fourth part, one of the
investigators intends to extend their previous vanishing
theorems and apply them to the study of birational
invariants. In the fifth part, one of the investigators will
attempt to relate the Hodge theory of higher homotopy groups to
the intersection theory of algebraic cycles. In the
sixth part, one of the investigators intends to study a class
of surface singularities, which are important for birational
geometry, over fields of positive characteristic. In the
sixth and final part, one of the investigators intends to
extend the theory of toroidal embeddings by taking into account
certain stratifications.

Algebraic varieties are geometric objects which provide a
rich set of models for a number of phenomena within mathematics
as well as in neighboring fields of science such as physics and
computer science. They have the advantage of being describable
in finite terms, as solutions to a finite system of algebraic
equations. However, these descriptions are often complicated and
not unique; deciding when two such descriptions lead to equivalent,
or even approximately equivalent, varieties is very difficult.
Approximate equivalence is made precise by the notion of
birational equivalence. One of the goals of this project is to
study the finer structure of the birational equivalence relation.
Another goal of this project is to introduce and study certain
natural birational invariants, that is, measures
of the geometric complexity of algebraic varieties. Some of
these invariants count the number of harmonic (energy
minimizing) objects associated to the algebraic variety.
These two goals are related since the investigators expect that the
fine structure of the birational maps will yield insights into
the properties of these invariants.